Validated Radiation Model Impacts on Climate Simulations

Abstract ATM-9812184 Iacono, Michael J. Atmospheric and Environmental Research, Inc. Title: Validated Radiation Model Impacts on Climate Simulations The planned work will examine the impact of an improved data-validated longwave radiation package on multi-year simulations with a GCM. Previous work has demonstrated that the increased heating rate accuracy provided by the Rapid Radiative Transfer Model (RRTM) modifies the temperature structure, water vapor distribution and tropical circulation in a seasonal GCM simulation. In addition, the important role of clouds in both longwave and shortwave processes in relation to the impact of RRTM will be investigated. The work is important because longer simulations are necessary to establish the full climatic and dynamical consequences of the improved longwave model and appropriateness of its proposed application to the next version to the NCAR Community Climate Model CCM4.